WOCE Hydrographic Sections Along 88 Degrees West and 150 Degrees West

This proposal is to make hydrographic measurements on the first leg of the World Ocean Circulation Experiment (WOCE) cruise in the southeastern Pacific on longitude 88 west. The data are used to identify describe ocean processes in this region, an very interesting one due to the complex vertical circulation that occurs there. These measurements and related tracer observations will form the basis for the ocean circulation description which is an objective of WOCE.